Human Cone Transduction

The human eye detects light by a sheet of specialized photoreceptor cells and nerve cells called the retina, at the back of the eye. Light energy is described in terms of units called quanta; the conversion of light energy to a neural signal output by the cell is called transduction. The electrical response within the photoreceptors is initiated by the fastest chemical reactions known. Despite the speed of these reactions, the total response time for the output of these cells is rather slow, to as much as a tenth of a second, because there is a cascade of biochemical reactions that effectively act to amplify the signal energy. Two basic kinds of photoreceptors, called rods and cones, initiate visual signals in the retina which then are sent to the brain by the optic nerve. The cone system is usually used for color vision in strong daylight illumination, while the rod system is very sensitive to low light level but does not carry color information by itself. This project examines the component mechanisms of the cone transduction process in the human eye, using human responses to obtain thresholds for seeing stimulus lights of highly controlled duration and intensity. Measurements will be made of responses to single flashes from the cone system when it is in a state of dark adaptation, of the number of quanta absorbed at the absolute threshold for different cone types, and of the different time components in the dark-adapted cone responses. This novel approach will generate important new fundamental information on normal human vision that will have impact on further understanding the biochemistry and physiology of vision in general.